Thermal Analysis and Experimental Polymer Chemistry in the Undergraduate Curriculum

9451724 Burkhardt Thermal analysis experiments are being incorporated into all levels of the offered curriculum including general chemistry. The greatest impact is in the polymer chemistry laboratory which is currently being redesigned; however, analytical chemistry, physical chemistry, and undergraduate research are also benefitting from the new equipment.